Biologically Inspired Self-Activated Building Envelope Regulation System (SABERS)

Abstract
1030027
Maria-Paz Gutierrez
University of California, Berkeley

The objective of this proposal is to establish self-active building envelope regulation systems (SABERs) by integrating optical and hygrothermal sensor and actuator networks on a thin membrane. The system is specifically designed for lightweight membrane applications such as deployable emergency housing in tropical climates with the aim to supplant the use of traditional air conditioning systems responsible for the most significant energy expenditure in built environments in these regions. The expected outcome of this research is the development of a membrane prototype that consists of a self-activated optomechanical sensor/actuator polymeric network that controls airflow due to the temperature, light and humidity changes. It is composed by activating air mechanics (ventilation and dehumidification) though microvalves controlled by integrated optomechanical and hygrothermal sensors and actuators associated to an internal desiccant membrane to block moisture. The second phase of the research will test the prototype’s ventilation rates, light transmission control efficiency, water vapor adsorption in order to evaluate the system’s ability to facilitate climatic comfort.

SABERs will provide a basis for the future development of newly integrated environmental sensor technologies for thin film building membranes applicable to building climatic regulation (light and hygrothermal). Self-activated architectural membranes of thin and flexible constitution bring forth advantageous weight reduction, functional broad applicability, low structural impact, and higher calibration sensitivity.